Support for Student Teams to Participate in International Challenge at Annual Conference of American Society of Precision Engineering; Boston, Massachusetts; 13-18 November 2023

This award supports undergraduate and graduate students studying at US institutions, including at least two institutions serving historically under-represented populations, to participate in the 38th Annual Meeting of the American Society for Precision Engineering (ASPE); Boston, Massachusetts; 13-18 November 2023

This award will enable student teams to participate in an international precision engineering design challenge, and provide opportunities to meet, exchange ideas, and learn from students, faculty, researchers, and engineers, from international and domestic universities, industries, and government facilities. The Annual Meeting of the American Society for Precision Engineering is considered a globally-leading professional gathering in the precision engineering field; hence, in addition to nurturing a global manufacturing vision, participants will learn the latest results and innovations in these fields.